U.S.-Taiwan Cooperative Research: Non-Equilibrium Phase Transitions in Heavy ION Collisions

9905954
Boyanovsky

This is a 24-month award proposed by Dr. Daniel Boyanovsky, University of Pittsburgh, collaborating with Dr. Da-Shin Lee, National Dong-Hwa University and Dr. K.W. Ng at the Academia Sinica. Dr. Boyanovsky requests travel funds for him travel to Taiwan to carry out a cooperative project with his counterparts at the National Doug-Hwa University and Academia Sinica. They propose to use non-equilibrium and non-perturbative methods in quantum field theory to investigate the physics of the quark-gluon plasma and chiral phase transitions. This study is jointly sponsored by the Taiwan National Science Council and the National Science Foundation.